Fast Kinetics Studies of Analytical Systems

This project is in the general area of analytical and surface chemistry and in the subfield of chemical applications of information science. Professor Crouch and his students will employ factor analysis and Kalman filter techniques to extract analytical information from kinetic data. Factor analysis will permit characteristics of the rate of a chemical reaction to be discerned and related to the amount of one of the reactants that is present in the system. Kalman filtering is a computational technique that enables properties of systems to be recursively estimated. In combination and with appropriate computational hardware support, these techniques will be used for the real- time, quantitative determination of concentrations of chemical species from reaction rate data. Whereas both factor analysis and Kalman filter techniques are well established, the combination of the two applied to kinetic analysis should afford a positive synergism that will be beneficial in many areas of application of analytical chemistry.